ARFMP: Behavioral and Life Sciences Animal Facility Renovation

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to the University of North Carolina at Greensboro for the renovation and repair of Eberhart Building which houses animal care facilities and the biological and behavioral sciences research and research training activities utilizing these facilities. This building was constructed in 1971 and expanded by means of an addition in 1977. The ARFMP grant of $285,000 and $286,200 provided by the grantee as cost sharing will be used to modernize these research and research training facilities thus accommodating a carefully planned increase in the research and research training activities taking place in Eberhart and helping to achieve the important goal of centralization of such facilities among the members of the Consolidated University of North Carolina. This project, addressing the need to improve the research infrastructure by providing better sanitation and security, will include upgrading of heating, ventilation and air conditioning (HVAC), and modification of the floor plan to add a rack washer, fume hoods, and new animal housing rooms. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of graduate and undergraduate students. Students trained in these laboratories, where high standards of animal care are maintained, will bring to their research and clinical careers an appreciation for procedures which meet national standards of practice and accreditation.